Nanotechnology in Construction-Travel Grant

0532544
Balaguru
Travel support is provided for a small group of US researchers to attend the 2nd International Workshop on Nanotechnology in Construction, to be held in Bilbao, Spain, during November 13-16 of 2005. The purpose of the workshop is to exchange information on the rapidly evolving research on nanotechnology as it applies to civil infrastructure and construction technology, to explore areas of collaboration, and to define research needs.